Theoretical Chemistry Computer Facility

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of Washington will acquire a Linux computer cluster system. This equipment will enhance research in a number of areas including a) ab initio and density functional electronic structure calculations on organic and organometallic compounds and on their reactions; b) single molecule magnets; c) development and application of methods for determining the mechanism and rate of transitions in condensed phases; d) theoretical and computational modeling of molecular excitation energy flow associated with chemical events in solution; e) the development and implementation of new and optimal methods for simulation of free energy differences; and f) computational studies of transient intermediates of chemical reactions.

A cluster of fast, modern computer workstations is vital to serving the computing needs of active research departments. Such a "computer network" also serves as a development environment for new theoretical codes and algorithms, provides state-of-the-art graphics and visualization facilities, and supports research in state-of-the-art applications of parallel processing.